Structure in Biology and Chemistry

This award from the Academic Research infrastructure Program will help the Department of Chemistry at SUNY-Stony Brook acquire a 500 MHz NMR, and an upgrade of an AMX 600 MHz NMR to a DMX600 MHz NMR which will be used in research. The research activity to be supported includes the structural investigations of five major users who work in organic chemistry and in biological chemistry; the research includes studies of steroidal diamines as DNA-targeted antibiotics, of electronic effects in face selection in addition and elimination processes, of applications of the -lactam synthon method and of 4+4 photocycloaddition processes in approaches to taxol analogs, and of the configurations of synthetic oxidosqualene cyclase and squalene epoxidase inhibitors. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, charcterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.